Experimental Elementary Particle Physics

This award will partially support a group from the University of Arizona, working in high energy physics. The group is participating in the construction and testing of the electronics for the calorimeter of the D0 detector, a general purpose detector to be installed at the Fermilab Tevatron Collider at the end of 1990. Of the physics topics to be covered by this detector, the group intends to concentrate on quark compositeness, symmetry violation, heavy quark physics and Higgs searches. The group also intends to be involved in the detector development for one of the large new detector to be used in the future with the Superconducting Super Collider.